International Conference in Partial Differential Equations, Complex Analysis and Differential Geometry; Notre Dame, IN; June 11-16, 2006

Abstract: International Conference in Partial Differential Equations Complex Analysis and Differential Geometry

Notre Dame University, Notre Dame, In, June 11th-16th, 2006.

The award will support US graduate students and researchers to attend this conference to be held at the Notre Dame University in June 2005. The topics to be covered include a number of different areas of mathematics that are important for applications and in physics. They include a number of very active areas of current research. It will be a week-long conference with nearly 60 invited speakers, including many of the top experts on these interesting topics.
The diversity of the invited speakers and their research interests should help make this a very productive meeting and assist the progress of these research areas.